State/Industry UniversityCooperative Research Center for Molecular and Microstructure of Composites

The principal research objective of the State/Industry University Cooperative Research Center for Molecular and Microstructure of Composites at the Case Western Reserve University and the University of Akron is to conduct fundamental research on the development of ultra-performance composites through purposeful molecular and microstructure design. The characteristics of the ultra-performance composites include more than 50% improvement of properties such as fracture toughness, hardness, radar transparency, electromagnetic shielding, reduction of viscosity for the ease of processing, reduced coefficient of friction, reduced weight, cryogenic compatibility, high energy resistance, etc. An interdisciplinary cross-campus team will address the core research program which includes five interactive components. These are: molecular modeling, interface/interphase, characterization, chemistry and synthesis, and processing. Research in the non-core program designed to promote use of developments in industry will be initiated only as the core research projects yield technology transferable results. The Edison Polymer Innovation Corporation (EPIC) will play a key role in facilitating, coordinating and implementing the Technology Transfer/Implementation Program which is designed to advance Ohio's economic development and industrial competitiveness. Initially, the Center will have eleven large, medium and small companies in the industrial consortium. Company representatives will participate in the Center's Advisory Board and Technical Committee. The Director and the Associate Director of the Center will be located at the Case Western Reserve University and University of Akron, respectively. The educational program will include: joint advisorship of graduate students, summer program for industry personnel. The State of Ohio, industry and NSF will provide matching funds totalling $750,000 in the first year.